Collaborative Research: Characterization of a Novel, Nitrogen-Fixing, Cyanobacterial Species from the Oligotrophic Oceans

This study builds on the discovery of Crocosphaera waterburyi, a new species of nitrogen-fixing cyanobacteria that thrives in warm oceanic waters. The process of nitrogen fixation in surface oceans affects primary production and the base of the food web. This study is demonstrating the response of C. waterburyi to environmental conditions to advance understanding of ecological and biogeochemical processes in the ocean. It serves the national interest by maximizing ecosystem services from marine systems, by supporting training for graduate and undergraduate students, and by delivering ocean-related educational and public outreach.

The investigators are using a variety of approaches to advance understanding of Crocosphaera waterburyi by developing a quantitative assay, describing its genetic potential, measuring its single-celled activity, and tracking its gene expression in varying conditions. The motivation for this research is that although other cyanobacteria demonstrate reduction in nitrogen fixation at temperatures above 31 degrees Celsius (C), C. waterburyi shows little growth reduction up to 34 degrees C. Therefore, this study has the potential to transform understanding of global nitrogen fixation in warm ocean waters. The three hypotheses being addressed are: 1) C. waterburyi is commonplace in warmer oceanic regimes (and more abundant than Crocosphaera watsonii) and contributes significantly to nitrogen fixation; 2) C. waterburyi is a prominent diazotroph in sinking particles because of its relatively large cell size and its tendency to aggregate, thus has high potential to contribute to export flux; and 3) while both oceanic Crocosphaera are adapted to low nutrients, phosphorus depletion combined with higher temperatures selects for C. waterburyi over C. watsonii because the species maintains more genes for alternative phosphorus source scavenging.